Computational Chemistry at the University of Pennsylvania

The recent successes of theoretical chemistry with improved programs and faster computers have generated the need for still faster machines with even larger capacities.